Electrolytic Steelmaking: Environmentally Sound Metal Production

It is estimated that the steel industry generates 5 percent of all greenhouse gases produced by human activity. This is a consequence of the intensive use of carbon as a reductant to extract metallic iron from its ore. The purpose of the proposed work is to examine the feasibility of electrolytic steelmaking, a process of direct electrolysis of molten iron oxide to produce pure liquid iron and oxygen gas. While electrochemical processing in molten oxides has enormous potential for the carbon-free extraction and refining of metals, to date there has been no sustained effort to develop a commercial process based on this technique, in part due to the inadequacy of the database. The question under study in the proposed investigation is the following: is it possible to conceive of a chemistry to support the direct electrolysis process described? To answer this question the high- temperature physical chemistry of molten oxide solution will be studied. Their electrical properties will be investigated by electrochemical impedance spectroscopy (EIS). A new cell for electrical conductivity measurements of highly reactive oxide melts has been designed for this purpose and is being certified in tests with aqueous KC1 solutions and melts of NaC1 and KC1. The thermodynamics of molten oxide solutions will be investigated by emf measurements. Reference electrodes have been designed for this purpose and will be examined during the course of investigation. Finally, electrolysis trails will be conduced in laboratory-scale cells designed to operate in the parameter ranges indicated by the data taken earlier. On an empirical basis, such tests have been conducted with feed consisting of oxide mixtures containing iron oxide and chromium oxide and oxygen evolution has been observed on an inert anode made of platinum. This confirms that faradaic processes can be made to operate in these melts. With a deeper understanding of the fundamentals it will be possible to optimize the system. Successful completion of the work will enable the development of a new carbon-free steelmaking process which in principle has the capability to be modified in accordance with different feedstock chemistries. For example, one could make ferroalloys such as ferrochromium (as a precursor for stainless steel) by electrolysis of the mixed oxides of iron and chromium. Similarly, one could produce ferromanganese by electrolysis of iron oxide-manganese oxide. Thus, metal production by direct electrolysis in molten oxides would not only solve a wide array of environmental problems facing the steel industry but also would serve as the basis for leapfrog technology to strengthen the U.S. industry's international competitive position.